Workshop: Scalable Cyber-Security Challenges in Large-Scale Networks: Deployment Obstacles

This is a collaborative between NSF/ANIR and DoE. The purpose of this workshop is to discuss challenges in cyber-security in large-scale networks and identify impediments and deployment obstacles of security on a large scale.

This workshop has potential to develop a long-term research and development vision to address not only the technical impediments to large scale deployment of cyber-security, but also identify the technical challenges and develop strategies to address these impediments.